Parallel Fault Diagnosis

Computer systems of the future may consist of thousands or even millions of processors. Inevitably some of the processors will fail. Faulty processors need to be repaired so that the system on continue functioning. The goal of this project is to investigate improvements to the existing algorithms for parallel fault diagnosis. Second, and more importantly, the project will develop dynamic models for fault diagnosis that are more realistic than previous models.